Molecular Biology Workshops for the California State University and Community Colleges

The workshops are designed to introduce participants to the rapidly changing technologies in molecular biology. Teleconferencing and computer networking will be used to promote integration of the workshops, as well as pre- and post-workshop activities. Strong lines of communication will be developed, between the participants and the instructors, to facilitate the incorporation of the learned techniques and concepts into the education of undergraduates at the participants' home institutions.